International Research Experience - Team Travel and REU/RET Sites Development Visit

0123793
Thadhani

This proposal is to study and develop a model of international research experience based on the team travel of a graduate student, an REU undergraduate student, and a RET teacher participant, to Japan. The results of the model study will be used during a subsequent site visit by the P.I.'s for developing international REU/RET sites at national laboratories and academic institutions in East Asia. The institutions being targeted are those that have extensively interacted with the P.I.'s during the last ten years, in conducting collaborative experiments, as well as via exchange of post-docs and faculty sabbaticals. The purpose of the international research experience is to allow the team members to gain an understanding of the research culture, as well as the philosophy of baccalaureate and higher education in East Asian countries.